Collaborative Research: Three-Dimensional Numerical Investigation of Density Currents

The oceanic thermohaline circulation is strongly affected by localized
dense-water formation in high-latitude oceans. Such dense water masses
are released into the large-scale circulation in the form of ocean bottom
density currents mostly from localized regions (e.g., Denmark Strait,
Strait of Gibraltar for the Mediterranean overflow, Bab el Mandep Strait
for the Red Sea overflow). Because of the small space and time scales
required to resolve their dynamics, such density currents form the
``bottle neck'' of the thermohaline circulation investigation. Despite their
importance, we have a limited understanding of the dynamics of bottom
density currents, and at present, the oceanic density currents are poorly
represented in global climate simulations. The main goal of this proposal
is to enhance the understanding of the dynamics of ocean bottom density
currents from laboratory scale, to geophysical scale, through three-dimensional,
nonhydrostatic numerical simulations. The investigators accomplish this
in three stages. First, benchmark a parallel high-order spectral element
Navier-Stokes solver, Nek5000, by reproducing existing laboratory results
of bottom density currents by direct numerical simulations. Second,
explore dynamics for which there are few or no laboratory results, in
particular dynamics of bottom density currents protruding into a stratified
fluid, and in a rotating environment. Third, bridge the gap between
laboratory scale and geophysical scale by using large eddy simulations.
Geophysical scale calculations are configured for the Red Sea overflow,
and confirmed with data from the Red Sea Overflow Experiment. Various
metrics are used to quantify density current dynamics.

Variation of solar heating with latitude, and other factors, drive the
so-called ``thermohaline'' circulation in the ocean, which is closely
linked to the role that the ocean plays in climate dynamics. This complex
geophysical problem, with its range of scales, physical, mathematical and
computational constraints can only be approached through an orchestrated
effort involving cross-disciplinary expertise. The investigators conduct
physically-guided numerical simulations, quantify dynamical behavior of
ocean density currents, and describe the impact of density currents on
the climate. The investigators integrate this research project with
education of three graduate students and contribute to the training of
US technical workforce for the 21st century. This research project
enhances the scientific understanding of oceanic density currents, and
helps improve the representation of ocean density currents in global
climate simulations and contribute to the climate change research.